Shared Virtual Memory Systems for Large-Scale Multiprocessors

This project continues research on shared virtual memory for multicomputers and further research on fault tolerant, real-time, parallel systems based on shared virtual memory. Such a system will be called persistent shared virtual memory. The system research is based on the principal investigator's previous research: shared virtual memory for multicomputers, concurrent real-time methods for checkpointing, garbage collection, main-memory transaction processing. Design methods for persistent memory management for a large class of multicomputers are studied and a persistent shared virtual memory system for the Intel iPSC/2 and iPSC/i860 multicomputers will be implemented.